ITR: Compiler Technology for Automatic Parallelization via Thread-Level Speculation

For many practical reasons (e.g., hardware development cost, power
consumption, etc.), it would be attractive if we could increase the
effective performance of a computer system by simply adding more processors
to it. While it is reasonably straightforward to build such systems that
support "parallel processing", relatively few of today's programs would
enjoy any performance gain on such machines because they were not written
with parallel processing in mind. The ideal solution for harnessing the
potential benefits of parallel processing without placing a large burden on
the programmer would be for the compiler to automatically transform a
sequential program into an efficient parallel program. While there has
been progress on using compilers to automatically "parallelize" regular
numeric programs (typically written in FORTRAN), there has been little
progress in automatically parallelizing broader classes of programs. The
key stumbling block has been that compilers have traditionally created
parallelism by proving that potential threads are always independent. To
circumvent this limitation, recent hardware prooposals enable the compiler
to optimistically create parallel threads without proving independence. In
this project, we plan to develop the compiler technology necessary to fully
exploit this new potential for harnessing parallel processors.